Elasticity of High Pressure Phases of Mantle Minerals

Robert C. Liebermann
9980451

Phase transformations in mantle minerals at high pressures and temperatures
strongly influence the physical properties and dynamic processes in the
Earth's interior. The objective of this laboratory program is to study the
elastic properties of high-pressure phases of mantle minerals using
ultrasonic techniques in conjunction with synchrotron X-radiation. The new
elasticity data will then be used to interpret seismic models of the
Earth's mantle in terms of chemical composition and mineralogy. This
research program takes advantage of the special opportunities provided by
the multi-anvil, large-volume facilities of the Stony Brook High Pressure
Laboratory and the associated analytical facilities of the NSF Science and
Technology Center for High Pressure Research (CHiPR), as well as those of
the National Synchrotron Light Source at the nearby Brookhaven National
Laboratory.